An Undergraduate Center for Applied Mathematics

Students are working on real-world projects provided by local industry. The students are learning the appropriate mathematical tools and how to implement them on microcomputers in a computer laboratory equipped with Macintosh computers and a variety of software packages. The curriculum for mathematics and science students and prospective teachers is being enriched by these projects. The institution will contribute an amount equal to the award.//